SGER: Do NMDA and Non-NMDA Glutamate Receptors Share a Common Functional Domain?

Glutamate receptors are proteins that are essential for communication between brain cells (neurons), and function in brain processes including learning and memory. Mammalian glutamate receptors have evolved into a multi-gene family containing subtypes with genetic, functional and pharmacological similarities. Glutamate receptors are activated when they bind extracellular glutamate (ligand). The binding to the receptor allows the protein to open a channel (pore) through which ions flow across the neuron's membrane; converting a chemical signal (glutamate) into an electrical signal (membrane depolarization). The proposed study will test the hypothesis that one region common to all glutamate receptors (the M3-M4 extracellular domain) participates in a common mechanism to relay the signal between the ligand binding site and the pore (allosteric signal transduction). Elucidation of a conserved functional role of the M3-M4 extracellular domain would provide important insights into how ligand-gated ion channels function.